WORKSHOP FUNDING PROPOSAL FOR MENU2001

This award will enable junior investigators to participate in the
workshop entitled "MENU 2001," to be held at Georgetown University, July 26-31, 2001. The workshop will focus on several current issues in hadron spectroscopy, including the so-called "missing resonance" question, and the production of strange particles.